The Third International Symposium on Biological Physics 1998 being held in Santa Fe, New Mexico, September 20-24, 1998

Austin 9813385 The Third Symposium on Biological physics will bring together both leaders and beginning scientists to the interface between physics and biology. The goal is to stimulate interaction among physicists and biologists, who wish to probe both the applications that physics has to biology, and what biology can teach about the physics of complex systems. The Symposium will be unified in the emphasis on the interplay between biology and physics, and in the close interactions among experiment, theory and computation. A wide spectrum of topics, ranging from nucleic acids to proteins to cell membranes, networks and cells, will be covered. This International meeting is jointly supported by the Molecular Biophysics Program in the Directorate for the Biological Sciences and the Office of Multi-Disciplinary Activities in the Directorate for Mathematical and Physical Sciences.